Spaces of Embeddings

9971293
Klein
Let P and N be manifolds, where P is compact. This project analyses
the homotopy type of E(P,N) = the space of embeddings from P to N. The
aim will be to establish ``multiple disjunction'' results for spaces of
embeddings. Applications of multiple disjunction are to include:

1. the finite generation of the homotopy groups of E(P,N)
in positive degrees when N is euclidean space,

2. bordism theoretic obstructions to embedding beyond the
metastable range, and

3. the study of higher order linking phenomena.

Manifolds are spaces having a homogeneity property: they locally
``look like'' euclidean space. Manifolds are fundamental objects of
mathematical research. One approach to studying them is to try to decide
when one manifold ``sits inside'' another one. This gives rise to the
notion of ``embedding.'' Specifically, an embedding of a manifold P in
a manifold N is a function from P to N such that no two points of P are
mapped via the function to the same point of N. The set of all embeddings
from P to N forms a topological space E(P,N), called the ``embedding
space.'' The goal of this project is to understand better the space
E(P,N) by importing techniques from the field of algebraic topology.
***